Thermodynamics of Magmatic Processes

Understanding magmatic processes requires detailed knowledge of the thermodynamics and kinetics of crystallization and melting in silicate systems. This research will focus on measuring the heat capacities of both simple model silicate melts and of molten rocks. The enthalpies of fusion of important rock-forming minerals will be determined. The calorimeter will be used to directly measure enthalpy release in crystallizing basalts as a function of cooling rate, and to relate this to observed crystal modes from quench experiments. This study should greatly expand both the data base and the fundamental understanding of the interrelationships among thermodynamic and kinetic factors during crystallization.